Hampton University Experimental Laboratory for Promoting Education and Research (HELPER)

This award provides infrastructure support for the development of the research and educational activities of the Hampton University Experimental Laboratory for promoting Education and Research. The support includes computing resources, as well as awards to undergraduate and graduate students. The investigators will be conducting research in the areas of (1) high-speed/parallel computing, (2) software engineering, (3) computer graphics, and (4) artificial intelligence/expert system development.